Planning and Assessment Project - Engineering Research in Visual Perception: Man-Machine Optimization

A study group of leading investigators will participate in a planning and assessment project to examine opportunities for engineering research in visual perception. Emphasis will be placed on requirements for new knowledge needed to support progress in artificial intelligence, robot vision, and machine vision systems generally. Topics to be covered include theory of vision, image interpretation, display systems, image integration, and human-machine optimization.